Amenability and other approximation properties of discrete and topological groups

This award supports research in analysis on groups, with emphasis on approximation properties of discrete and topological groups and their connections to operator algebras, probability, and quantum information theory. The project investigates mathematical structures related to symmetry, randomness, and large-scale algebraic behavior, including amenability, soficity, and hyperlinear approximation phenomena. These questions are connected to foundational problems in mathematics and theoretical physics, particularly to finite-dimensional approximation methods that arise in quantum information theory, quantum computation, and the study of quantum correlations. The project promotes the progress of science by advancing fundamental mathematical knowledge in analysis, operator theory, and dynamical systems. Broader impacts include the training and mentoring of graduate students, participation in conferences and workshops, and the organization of collaborative research activities such as the annual Brazos Analysis Seminar involving several Texas institutions. The project also supports dissemination of research through mini-courses, seminars, and interdisciplinary interactions connecting analysis, probability, group theory, operator algebras, and mathematical aspects of quantum information theory.

The research focuses on several interconnected problems concerning approximation properties of groups and topological dynamics. One direction develops a unified framework for amenability in topological and discrete groups, including investigations of Kesten-type criteria, skew-amenability, and Liouville properties using probabilistic and ergodic methods. Another direction studies sofic and hyperlinear approximations of amenable and non-amenable groups and examines relationships between different approximation frameworks. The project investigates finite-dimensional approximations of characters, positive definite functions on topological groups and their discrete subgroups, and new approaches related to Connes-type embedding problems. These problems are closely related to operator-algebraic approximation models arising in quantum information theory, where finite-dimensional approximations play an important role in understanding quantum correlations and quantum complexity. Anticipated outcomes include advances in the structure theory of groups, operator algebras, and approximation phenomena at the interface of analysis, probability, and quantum information theory.